In-Situ Characterization of Solid/Solid Interfaces in High Technology Materials by Spectroscopic Ellipsometry

This research aims to study solid/solid interfaces of ion-implementation procedures in high-technology materials processing. This nondestructive, nonperturbing technique produces results which are in agreement with the completely independent results obtained on the same specimens using cross-section Transmission Electron Microscopy. The study seeks to obtain the following information: the depth profile of multilayer structures; the thickness of each layer; the structure (whether crystalline or amorphous) as well as the degree of crystallinity in the region; characterization of the oxide layer if present on the specimen; and characterization of the microroughness of the surface.